Frontiers in Glycoscience

With this award, the Organic and Macromolecular Chemistry Program and the Cell Biology Program are supporting a workshop on the "Frontiers in Glycoscience." The workshop will be organized by Dr. Laura L Kiessling of the Department of Chemistry at the University of Wisconsin and by Dr. Gerald W. Hart of the Department of Biological Chemistry at the Johns Hopkins School of Medicine. The workshop, to be held May 4-5, 2000 at the Foundation, will involve approximately twenty Scientists from the USA. The focus of the event will be an exploration of the future of glycoscience research and of the role of biology and chemistry in this important area.